CISE Research Instrumentation: Video Acquisition, Display and Processing Laboratory

This award is to develop a state-of-the-art video acquisition, display, and processing laboratory to support a wide variety of research projects in video and image coding, image and multidimensional signal processing, and computer vision and image understanding. The equipment will include a component digital video recorder and a high speed computer workstation. The next decade will almost certainly witness a rapid expansion of video and image related products and services that require compressed image and video data for transmission over band limited channels, or storage on band limited storage devices. The bandwidth of broadcast video is very large therefore research on video compression and computer vision requires high speed digital acquisition and storage devices and fast computers to process, display, and analyze the digitized video signal. Hence, Washington State University will establish a research laboratory with video acquisition, display and processing equipment that will support ongoing research efforts in video and image coding, computer vision, and image processing.